Gateways III: Moving Forward

Goldman 9452864 Gateways 111 is a conference to be held in San Francisco, CA on October 6-8, 1994 to bring curriculum developers from all of the National Science Foundation funded elementary, middle, and high school comprehensive mathematics curriculum projects. They share information, experiences, and address common problems that have arisen as materials have been developed, tested, and implemented. This conference will feature increased interaction with teachers and educators who are involved in classroom implementation of mathematics education reform. The conference schedule include visits to classrooms, project poster sessions, break-out sessions, and panel discussions. Implementation will be a major theme of the conference. ***